1st Annual ACM Symposium on Parallel Algorithms and Architectures in Sante Fe, New Mexico on June 18-21.

This project supported a new conference on parallel algorithms and architectures. The conference provided an outlet for papers involving the theory and practice of parallel algorithms and architectures, and a common meeting ground for theorists and practitioners.